Collaborative Research: Physiology, Ecology, and Biochemistry of Nitrogen Fixation by Marine Planktonic Microorganisms (ABR)

Carpenter 9317738 This project continues studies into the ecology, physiology and biochemistry of Trichodesmium and other planktonic N2 fixers, undertaking several cruises in more widespread areas of tropical North Atlantic, W Caribbean, NE & NW Australia than pervious efforts. One objective is to assess Trichodesmium population abundance and N2 fixation along with concurrent assessment of phytoplankton population abundance and N assimilation, new and regenerated nitrogen. Species distinctions will be done using ultrastructure and nifH gene sequencing. This will involve protein labeling and ultrastructural studies and molecular biological approaches. The next objective is to determine whether the phenomenon of diel periodicity in nitrogenase activity is a common characteristic of these populations as well as further examining the basis for this periodicity and the mechanisms of O2 protection. The project will continue to examine the fate of Trichodesmium C and N, determine the release rates of labile organics (glutamate and other amino acids) and the grazing rates by harpacytacoid copepods. With respect to grazing, the project will to assess the importance of the presence of toxins, which inhibit grazing as a function of the species of Trichodesmium. In addition, the project will examine the mechanisms of Trichodesmium buoyancy reversals, along with field research on adaptational significance, and the use of isotopic and biochemical "biomarkers" for tracking the fate of Trichodesmium biomass. Finally, Trichodesmium population measurements will be coupled with biooptic measurements with the goal of developing remote sensing algorithms. Overall, the project will provide information to assess critically the inference that Trichodesmium is a quantitatively significant input of new N. This informantion will contribute substantively towards obtaining a complete understanding of the ecology, physiology and biochemistry of planktonic N2 fixers and their role in C and N fluxes in the oceans. ***